Equipment to Support Undergraduate Instruction in Riverine Ecology.

A number of recent developments make it highly desirable for this institution to develop its capability to exploit the Fox River as a convenient outdoor laboratory for coursework and independent student research. Included among these are the approval of a new Environmental Science major, increased emphasis on aquatic research by faculty in the Biological Sciences, improvement in water quality and biotic diversity in the Fox River, and the relative inaccessibility of traditional terrestrial and small aquatic sites. (Although limited shore-based sampling was possible before the acquisition of the equipment provided in part through this grant, a lack of sampling gear appropriate for large riverine habitats prevented thorough use of the river.) Acquisition of a versatile new boat-contained aquatic sampling system with capabilities for electrofishing and for making standard limnological measurements in large aquatic habitats effectively removes that barrier, making possible sound field-based laboratory experiences for undergraduates in this program.